Exploratory Procedures and Algorithms for Machine PerceptualDevelopment

This grant will support three students for research in robotic exploratory perception, robust multisensor fusion, and motion- based visual determination of navigational obstacles. The studies will advance our understanding of complex sensor-system design, spatial knowledge representation, and exploratory procedures for learning unknown dynamic environments.